A Laboratory for Pattern Recognition and Computer Vision Research

This award will support the enhancement of the Pattern Recognition and Image Processing (PRIP) Laboratory of the Department of Computer Science at Michigan State University. A modern, distributed, pattern recognition facility will be established, consisting of four image processing/graphics workstations, a dedicated file server and a computation server, image acquisition and image output devices, a laser range finder for capturing 3-D range data, an optical disk for archiving images, a LISP machine with a signal processing board, and several workstations for software development. The PRIP Laboratory will provide the environment for the following research projects: 1. extraction and evaluation of features for recognition of 3-D objects and construction of object models, 2. examination of the role of Markov Random Field models in pattern recognition and computer vision, 3. investigation of the perceptual grouping problem in computer vision, 4. development of parallel programming environments for computer vision applications, 5. application of pattern recognition and image processing algorithms in remote sensing for land use planning, measurement of root systems by soil scientists, detection of structures in magnetic resonance brain scans, and the analysis of sequences of fluid images. The grant will also support development of the Artificial Intelligence/Knowledge Based Systems research group, which will interact with the PRIP Laboratory in studying the object recognition problem.